Structure, Function and Growth of Autonomic Synapses

The objective of this research is to characterize the relationship between synaptic structure and function in the cardiac ganglion of the frog Xenopus laevis. Each parasympathetic neuron in the ganglion is innervated by an axon which deposits several synaptic boutons on its cell body. Extracellular recording techniques will be used to monitor the release of transmitter from individual synaptic boutons. Voltage clamp techniques will be used to measure the quantum content, m, and to calculate the number of quanta available for release, n, which will be compared to the number of active zones. The total number of synaptic boutons on the ganglion cell body is correlated with target cell size in adults. Voltage clamp techniques will be used to learn whether inputs with more synaptic boutons elicit proportionately more synaptic current when stimulated. The functional significance of the observed parallel increase in both cell size and bouton number during postmetamorphic growth will be assessed, again with voltage clamp techniques. If transmitter release from individual boutons elicits a constant amount of synaptic current, regardless of the stage of growth, then synaptic boutons presumably represent functional units of synaptic growth. These studies should increase our understanding of the relationship between the structure, function and growth of interneuronal synapses.